High Frequency/High Speed Characterization of Optoelectronic Integrated Circuits

9412920 Prasad The goal of this project is to initiate high speed electrical characterization of optical components in optoelectronic integrated circuits (OEIC's). This is to be followed by the characterization of full OEIC's. An existing automatic network analyzer and on-wafer probe station with measurement capability up to a frequency of 40 GHz is to be suitably modified with a photodector and auxiliary optical equipment to allow optical as well as electrical RF measurements. Laser diode, light emitting diode and detector models will be extracted using scattering parameter measurements and the microwave modulation response of the devices will be measured with a view to optimization of the modulation bandwidth. Optoelectronic circuits and systems will be investigated with particular attention being given to a critical comparison between the performance when a) both input and output are electrical, b) both input and output are optical, c) the input is electrical and the output is optical, and d) the input is optical and the output is electrical. This part of the research will be initiated with measurements of an optoelectronic transceiver with LED sources as well as with lasers, M-S-M detectors and GaAs MESFET VLSI electronics. The measurement and characterization methods developed in this initial phase will be sufficiently general so that they can also be applied to other optoelectronics circuits and systems. ***